SBIR Phase II: An Ultra-Fast Signal Integrity Analyzer for Multi-Layer Electronic Packages and Boards

*** 9801161 Chen The aim of this Small Business Innovation Research Phase II project from SIGRITY is to develop an ultra-fast signal integrity analyzer for multi-layer integrated-circuit (IC) chip packages and printed circuit boards. It has been demonstrated that electromagnetic fields in multi-layer electronic packages can be decomposed into several most significant modes, and each mode of field is solved with special fast algorithms. The proposed signal integrity analyzer integrates a fast electromagnetic field solver with transmission line and circuit solvers so those interactions between packages and IC chips are automatically taken into account. Ever increasing integrated-circuit transition speed and packaging density have posed severe challenges to the design of high performance electronic packages. It is generally accepted today that package performance is one of the major limiting factors of the overall system performance. Accurate signal integrity analysis of electronic packages demands electromagnetic field simulation. Existing commercial electromagnetic tools, however, are unable to provide timely and cost effective solutions for the design of practical package structures. This project is anticipated to achieve a prototype signal integrity tool that would be orders of magnitude faster than present commercial tools. In this Phase II project, simulation schemes will be further developed and implemented in the prototype software tool to handle various issues in practical packages. These issues include the modeling of loss metal planes and signal conductors; computation of electromagnetic radiation from packages; simulation of nonlinear devices described in Input/Output Buffer Information Specification (IBIS) format; and loading package geometry descriptions from data files of standard formats. Fast and accurate signal integrity tools should significantly benefit the electronic packaging design necessary to advance the U.S. electronics industry. The proposed research will lea d to commercial signal integrity tools that can provide timely and cost-effective means for accurate evaluation and design of electronic packages and printed circuit boards. These signal integrity tools are essential for the design of future high-speed electronic systems. ***